How Things Work

9453805 Yao The Ann Arbor Hands-On Museum is requesting $370,728 to create a traveling exhibit entitled "How Things Work, which will familiarize students and the general public with the science and engineering behind 15-20 "gadgets" which play vital roles in their everyday lives. A number of the exhibit elements will be based on the work of Dr. Richard Crane. Ancillary materials will be developed for classroom teachers as part of school outreach. An Exhibition Resource Guide will be developed for use by other museum venues, as well as teachers, students and others.